Measurement of the Number-Size Distribution and Hygroscopic Properties of Asian Aerosols for the Aitken, Accumulation and Coarse Modes

This project will provide measurements of aerosol number size distribution and hygroscopic properties of aerosols on board the NOAA Ron Brown research vessel during ACE-Asia (Aerosol Characterization Experiment). The specific instruments to be deployed include Condensation Particle Counters, Differential Mobility Particle Sizers, Aerodynamic Particle Sizers, and Differential Mobility Analyzers, providing aerosol size distribution information over the entire relevant size range and hygroscopicity information as a function of particle size, including coarse particles. These measurements are crucial for characterizing the physical properties of the aerosol in the ACE-Asia region, and for closure studies of physical, chemical, and optical properties.